An Analysis of Current Meter, Sea Level and CTD Data from Two Eastern Boundary Regions

A comparative analysis of eastern boundary currents using previously collected data on flow and hydrography is proposed. Emphasis will be on the large scale and long-term variability. A synthesis of many previous experiments will result allowing broader conclusions about eastern boundary systems.